Processing of Ceramic Materials by Microwave and Ohmic Heating

Kriegsmann
0708065

The investigator models and analyzes two classes of physical
problems arising in ceramic processing by microwave and ohmic
heating. These problems give rise to challenging nonlinear
initial boundary value problems, the mathematical statements of
which involve one or more nonlinear parabolic equations,
governing the diffusion of heat and the diffusion of a chemical
concentration, the time harmonic version of Maxwell's equations,
and in the case of ohmic heating, a nonlinear potential problem.
These equations are coupled together in a nonlinear fashion and,
in addition, nonlinear heat balances are required in certain
applications where surface temperatures produce significant
thermal radiation. The investigator develops and uses asymptotic
methods, dictated by certain physical limits, to mathematically
model these physical problems. These models are analyzed, using
both analytical and numerical methods, to obtain accurate
descriptions of the processes.

The rapid heating of ceramics by microwave and other forms
of electrical energy is the basis of several emerging industrial
processes such as sintering, fiber coating, joining, and chemical
vapor infiltration. These processes may be capable of efficiently
producing high quality materials for use in high temperature
applications, such as heat exchangers, combustion liners, pump
seals, and rocket nozzles. The development and exploitation of
these promising technologies remain hindered by the basic physics
of the process. The first problem is the occurrence of
nonuniform heating, which causes the deleterious effect of
nonuniform material properties. The second, in the case of
microwave heating, is the catastrophic phenomenon of thermal
runaway, in which a slight change of power causes the temperature
to increase rapidly to the melting point of the ceramic. It is
the understanding, control, and use of these phenomena and the
development of accurate and efficient mathematical tools to
quantify them that is addressed by the investigator and his
students.